Professional Development for Teaching and Learning about Energy and Equity in high School Physics

This project will research and develop instructional materials and conduct professional development for teachers to help students understand energy flow, an important scientific concept with economic and social implications. This energy learning is the foundation for informed decision-making about sustainable and just use of energy resources. Energy issues are not only issues of science and technology, but must be integrated with civics, history, economics, sociology, psychology, and politics to understand and solve modern energy problems. Placing the scientific concept of energy in this social context presents an opportunity to advance science education as equitable and culturally responsive.

This project will create a model for secondary science teacher professional development that integrates science concepts with equity education. This model promotes a key epistemological issue: that science concepts are not culture-free or socially neutral ideas, but rather are concepts created and sustained by people in specific times and places for the purposes of (1) addressing specific social needs and (2) empowering people or groups of people. The two major components of the project are (1) the professional development experience, including both an intensive in-person summer workshop and an online professional learning community, and (2)an energy and equity portal, including an instructional materials library, an action research exchange, and a community forum for teacher discussions. The portal will provide technical resources to support the PLC, including support for sharing instructional materials and reporting on action research. The research plan includes exploratory, development and application phases. The researchers will identify teacher learning in the first iteration of PD, collect and analyze the instructional artifacts to inform how teacher engage with, participate in, and build an understanding energy as a historically and politically situated science concept. A team of scholar-videographers will observe, taking real-time field notes and making daily memos. The research team will use the instructional artifacts, video recordings, field notes, and memos as a basis for analysis through the next academic year. The result will be a nationally significant community of teacher-leaders and library of research-tested instructional materials that are responsive to students' scientific ideas, relevant to socio-political concerns about energy sustainability, respectful of students' cultures, and open to all students no matter their cultural background. Teachers participating in the project will learn to explain how scientific concepts of energy reflect culturally specific values, analyze socio-politically relevant energy scenarios, learn the historic and present-day inequities in the energy industry and in science participation, and be supported in preparing instruction for secondary students that is culturally responsive and relevant to their students' communities.

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.